Engineering Research Equipment Grant: Metallurgical Vacuum System

A Metallurgical Vacuum System with capabilities for melting, casting, and heat treating is acquired. The system is critical to the research programs in materials engineering with special emphasis on solidification processing.